Conference: Recent Outcomes in Birational and Complex Algebraic Geometry

This award supports participation at the conference "Recent Outcomes in Birational and Complex Algebraic Geometry", which will take place at Stony Brook University and the Simons Center for Geometry and Physics from October 28-30, 2026. Complex algebraic geometry is the area of mathematics focused on studying the solution sets of systems of polynomial equations over the complex numbers, using methods from complex analysis and from algebra. In birational geometry, which expanded significantly after groundbreaking work of Mori and others in the 1980s, one only looks at "most of" the solutions, and this allows one to classify the possible geometries of the solution sets into certain distinct types. The conference will bring together many experts in these fields to share major recent developments with the relevant mathematical community, to propose new research directions, and to establish connections between different subfields. In an effort to give early-career participants a global view of important developments and familiarize them with open research problems in algebraic geometry, the talks will contain a substantial expository and didactic component.

The major themes of the conference, rooted in algebraic geometry, have a wide mathematical range: the Minimal Model Program and its applications, vanishing theorems and analytic methods, Hodge theory and singularities, syzygies and commutative algebra, rationality and irrationality, and Hyperkaehler geometry. Leading experts in birational and complex geometry are confirmed to speak on their recent research advances related to these themes. For more information, please see the conference webpage: https://nathanchenmath.github.io/ROB-AG